Query Processing in Pervasive Location Aware Computing Environments

Abstract:
This proposal centers on research challenges arising from the realization of Pervasive Location-Aware Computing Environments (PLACE). In PLACE, mobile objects are aware of their own locations as well as
those of surrounding objects. Such an environment enables (i) the navigation of moving objects, (ii) the execution of continuous queries about moving objects, and (iii) services for groups of moving
objects. The pervasive nature of location-aware objects, the need for timely responses to numerous concurrent continuous queries dependent upon continuously arriving data pose new challenges for scalable query processing.

The proposed research investigates query processing, data management, and broadcasting techniques for the efficient execution of continuous queries. The proposed techniques include (i) the use of data filters and indexing techniques to reduce the amount of data the queries need to analyze, and (ii) the development of techniques for executing continuous queries in an environment characterized by differences in bandwidth, communication costs, and computational capabilities of the objects. The proposal includes building a prototype system to validate and evaluate the proposed techniques and solutions.